RUI: Order Alpha Squared Corrections to Positronium Energy Levels and Decay Rates

The structure of positronium is almost entirely governed by quantum electrodynamic effects. Calculations are performed using state-of-the-art computational techniques on the energy levels and decay rates positronium.